Analysis and Parameter Estimation of Immobilized Enzyme Reactions

The newly-evolving area of biotechnology involves an attempt to use microorganisms to produce new products. Essential is the development of novel configurations of large bioreactors that utilize the microorganisms more efficiently than the reactors of the past which had to be run in batches and consisted of very dilute aqueous systems (and therefore had to be followed by very expensive separation sections). Immobilizing enzymes on a solid support structure permits continuous operation and is aimed at alleviating the first of the above limitations. The design of large scale bioreactors, utilizing such immobilized enzymes is in its infancy. This research is attempting to use methodology developed in heterogeneous chemical catalysis for such bioreactors. The system to be used for these experimental studies are immobilized enzyme systems which behave as pseudo-first-order reacting systems. The solid phase, in this care a bioparticle, (analogous to the catalyst in chemical systems) is where the reaction occurs. The specific systems that will be used include immobilized glucose isomerase, immobilized invertase, and immobilized lactase.